Engineering Foundation Conference on Computational Fluid Dynamics in Chemical Reaction Engineering, October 1996, San Diego, California

ABSTRACT Proposal Number: CTS 9634577 PI: Dudukovic This is a grant for partial support of the Engineering Foundation Conference on Computational Fluid Dynamics in Chemical Reaction Engineering to be held in San Diego, CA on October 13-18. It is anticipated that the conference will be significant examination of the role of CFD chemical reaction engineering. The focus of the conference is on: Frontier orientation State of the art with emphasis on future trends Interface between academic discoveries and industrial practice